FIA: Collaborative Research: MobilityFirst: A Robust and Trustworthy Mobility-Centric Architecture for the Future Internet

This project is aimed at the design and experimental validation of a comprehensive clean-slate future Internet architecture. The proposed MobilityFirst architecture is motivated by the ongoing paradigm shift of Internet usage from today’s fixed PC/host (client)–server model to emerging mobile data services and pervasive computing applications. The major design goals of the architecture are: mobility as the norm with dynamic host and network mobility at scale; robustness with respect to intrinsic properties of the wireless medium; trustworthiness in the form of enhanced security and privacy; usability features such as support for context-aware services, evolvability, manageability and economic viability. The key components of the MobilityFirst network design are: (1) separation of naming and addressing, implemented via a fast global dynamic name resolution service; (2) self-certifying public key network addresses to support strong authentication and security; (3) generalized delay-tolerant routing with in-network storage for packets in transit; (4) flat-label internetwork routing with public key addresses; (5) hop-by-hop transport protocols operating over segments rather than an end-to-end path; (6) a separate network management plane that provides enhanced visibility; (7) optional privacy features for user and location data; and (8) an integrated computing and storage layer to support programmability. The project’s scope includes architectural design, validation of key protocol components, testbed prototyping of the MobilityFirst architecture as a whole, and real-world protocol deployment on the GENI experimental infrastructure. The results of this project will provide architectural guidance for cellular-Internet convergence, and are expected to influence future technical standards in the networking industry.